Stochastic Models of Asset Valuation in Markets with Frictions

ABSTRACT:

The PI proposes to continue her program to develop methods to study a
broad range of valuation problems in portfolio management and asset
pricing. More precisely, using techniques from the theories of stochastic
control and nonlinear partial differential equations, the PI proposes to
continue her research program in the following two general areas:
A. Models with transaction costs: The goal is to investigate (i) the
valuation of early exercise instruments and exotic derivatives in a
multi-security framework, (ii) the estimation of hedging probabilities in
a relaxed super replication setting, (iii) the impact of a finite horizon
to trading policies, and (iv) the asset valuation with transaction costs
and alternative price processes.
B. Models with stochastic volatility: The goals are (i) the complete
characterization and calibration of stochastic volatility functions and
(ii) the analysis of delta hedging and value at risk in the presence of
stochastic volatility and unhedgable risks.

Financial markets are not "perfect" due to the presence of various
frictions like transaction costs, asymmetric information, stochastic
volatility, trading constraints, irreversibilities and liquidity. These
market imperfections generate unhedgable risks which cannot be priced via
the existing classical valuation principles. This project proposes to
introduce novel valuation methodologies and to analyze the relevant
stochastic optimization problems. In addition to the areas of derivative
pricing and portfolio management, it is expected that the new results will
be applied to other valuation systems arising in corporate finance, credit
risk, insurance theory, electronic commerce and optimal environmental
management.